Improvement of a Research Program in Flavor Chemistry by the Addition of Chiral Gas Chromatography

This Career Advancement Award for Women in the Analytical and Surface Chemistry Program is in support of an ongoing research program in the flavor chemistry of wines. During the tenure of this one year standard grant, Professor Mary G. Chisholm will spend nine months at the Lord Zuckerman Research Centre in Reading, UK to gain exposure to new technology in food science to support her research program. Upon her return she will train undergraduate students at the Penn. State Erie-Behrend College in multidimensional gas chromatography (MDGC) to isolate flavor bodies in wines. Chirality is known to play a major role in taste and odor perception, although few methods exist to date to quantitate this effect. Prof. Chisholm will investigate use of chiral gas chromatography using modified cyclodextrin columns to study the role of enantiomeric components in determining the flavor and aroma in wines and other foods. Results from this work should allow a more objective means of correlating the chemical composition of foods to their sensory evaluation. In the past, the evaluation of color in food, clothing, paints, etc. was solely a subjective visual evaluation fraught with variability and misinterpretation. Today, a modern system of spectroscopic, computational, and sensory evaluations are made for quantitative color comparison. A comparable system does not yet exist in flavor testing. Flavor perception involves a combination of taste, odor, and texture and the interplay of these factors is not well- understood. To date, flavor evaluation in foods and beverages is still a very subjective test. Out of the hundreds of compounds that may exist in a food ingredient, only a few may contribute to the observed flavor. In many cases the "aroma-active" component may have the same chemical formula, but may differ only in the spatial orientation of chemical functional groups. A combination of analytical testing, sensory evaluation, statistical and computational methodology may be needed to id entify the flavor contributing species in food. Prof. Chisholm and her undergraduate students at PA St. Erie-Behrend will use a combination of CHARM analysis (sensory evaluation of volatile food components from a gas chromatograph) and MDGC (controlled concentration and high resolution separation of gaseous analyte) to better define those factors contributing to flavor in various wines. In addition, Prof. Chisholm will spend a nine month sabbatical in one of the top Food Science institutions in Europe studying the application of these techniques to wines.